Microwave Sensor for Nondestructive and Non-Contact Estimation of Concrete Compressive Strength

9523264 Zoughi The primary objective of this research is to investigate the relationship between the compressive strength of concrete and microwave reflection coefficient measured at the aperture of an open-ended rectangular wave guide inspecting the concrete in a contact or non-contact fashion. Subsequently, the results of this study will be used to develop a microwave, nondestructive, real-time, in-situ, cost-effective and portable sensor for estimating concrete compressive strength with a high degree of accuracy. ***